F11I: Fundamental Processes of Solar Harvesting in Excitonic Solar Cells: 2011 Materials Research Fall Meeting To Be Held In Hynes Convention Center, Boston MA Nov 28- Dec 2, 2011

Intellectual Merit:

This symposium aims to bring together researchers working on quantifying nanoscale
carrier transport processes in excitonic solar cell devices. Excitonic solar cells, including allorganic, hybrid organic-inorganic and dye-sensitized solar cells (DSSCs), offer strong
potential for inexpensive and large-area solar energy conversion.
Broader Impact:

The symposium strongly encourages the participation of underrepresented groups,
including Hispanics, Native Americans, and women, through appropriate travel and
registration support. Specific efforts to encourage their participation include: distribution
of information encouraging women/ethic minorities, researchers from undergraduate
educational institutions along with abstract acceptance.